MINT: Multicast Protocol Interoperability Testing

This award is made under the high performance connections portion of ANIR's "Internet Technologies " announcement, NSF 98-104. It provides support for two years to address tools and methodologies for network protocol interoperability testing, with special emphasis on multicast protocols. Collaborators include but are not limited to Cisco Systems, 3COM, and Nortel Networks.